Representations of Finite Groups and Algebraic Lie Theory

The investigators will continue their study of the representation theory
of finite groups, especially the symmetric group and its double covers, by
exploiting various connections to Lie theory. These connections arise at
many different levels, combinatorial, algebraic and geometric, and involve the
representation theory of algebraic groups, supergroups, quantum groups and
infinite dimensional Lie algebras. The investigators intend to study in
particular the Shapovalov form on highest weight modules over affine
Kac-Moody algebras via vertex operators, Broue's conjecture for the
symmetric group, and to further exploit the relationship between branching
rules and crystal graphs in representation theory.

This project is in the area of mathematics known as representation theory.
The tools of mathematics provide a precise way to describe the symmetries
of something. Representation theory is the study of the ways such
symmetries can arise in the real world, and as such it has applications to many
areas of mathematics, physics and chemistry. In the last few years, there has
been some major progress in our understanding of representation theory, thanks
in part to a new influx of ideas from mathematical physics. This project is
concerned in part with the representation theory of the most important of all the
finite groups, the symmetric group, which is closely related to the theory of
symmetric functions. The work is expected to have applications to other areas of
mathematics, as well as a wider impact in mathematical physics, statistical
mechanics and coding theory.